REU Site: Drexel Research Experience in Advanced Materials (DREAM)

This Research Experience for Undergraduates (REU) Site is supported by the Department of Defense in partnership with the NSF REU program. This award provides up to three-years of support for an REU Site at Drexel University. Ten freshman and/or sophomore-level students will be recruited for a ten-week summer experience in materials-related research. Students will have an opportunity to do research in broad areas such as nanotechnology, biotechnology, and advanced materials. Student participants will collaborate as a member of a research team and will have opportunity to participate in weekly research seminars by senior investigators, weekly demonstrations of cutting-edge research equipment, and field trips to nearby industrial and national research laboratories. It is anticipated that this program will have a Broader Impact on the nations need to increase the number of U.S. citizens and permanent residents engaged in research-related careers. Students will specifically be recruited at an early stage in their academic development as a way to motivate and propel them into exciting careers in emerging fields of science and technology.